Collaborative Research: Habitat fragmentation effects on seagrass fish diversity at landscape scales: experimental tests of multiple mechanisms

Amount and quality of habitat is thought to be of fundamental importance to maintaining coastal marine ecosystems. This research will use large-scale field experiments to help understand how and why fish populations respond to fragmentation of seagrass habitats. The question is complex because increased fragmentation in seagrass beds decreases the amount and also the configuration of the habitat (one patch splits into many, patches become further apart, the amount of edge increases, etc). Previous work by the investigators in natural seagrass meadows provided evidence that fragmentation interacts with amount of habitat to influence the community dynamics of fishes in coastal marine landscapes. Specifically, fragmentation had no effect when the habitat was large, but had a negative effect when habitat was smaller. In this study, the investigators will build artificial seagrass habitat to use in a series of manipulative field experiments at an ambitious scale. The results will provide new, more specific information about how coastal fish community dynamics are affected by changes in overall amount and fragmentation of seagrass habitat, in concert with factors such as disturbance, larval dispersal, and wave energy. The project will support two early-career investigators, inform habitat conservation strategies for coastal management, and provide training opportunities for graduate and undergraduate students. The investigators plan to target students from underrepresented groups for the research opportunities.

Building on previous research in seagrass environments, this research will conduct a series of field experiments approach at novel, yet relevant scales, to test how habitat area and fragmentation affect fish diversity and productivity. Specifically, 15 by 15-m seagrass beds will be created using artificial seagrass units (ASUs) that control for within-patch-level (~1-10 m2) factors such as shoot density and length. The investigators will employ ASUs to manipulate total habitat area and the degree of fragmentation within seagrass beds in a temperate estuary in North Carolina. In year one, response of the fishes that colonize these landscapes will be measured as abundance, biomass, community structure, as well as taxonomic and functional diversity. Targeted ASU removals will then follow to determine species-specific responses to habitat disturbance. In year two, the landscape array and sampling regime will be doubled, and half of the landscapes will be seeded with post-larval fish of low dispersal ability to test whether pre- or post-recruitment processes drive landscape-scale patterns. In year three, the role of wave exposure (a natural driver of seagrass fragmentation) in mediating fish community response to landscape configuration will be tested by deploying ASU meadows across low and high energy environments.